SBIR Phase I: Very-Low Emissions Heating, Cooling and Hot Water System

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) project will be the reduction in home energy costs, electric grid system costs, and environmental impacts from electricity generation. The proposed research project will advance the state of the art in residential combined heating and hot water technology. The research project will resolve the technical risks associated with operating a high-efficiency CO2 heat pump in combined heating and hot water applications, and with implementing efficient load shifting in these applications. The project has the potential to reduce user energy costs, grid system costs, and environmental impacts by: shifting electrical load from peak demand times to off-peak demand times, reducing the need for costly and highly polluting peak power generation resources, and integrating variable renewable energy resources, such as wind and solar at times of low demand. This will put downward pressure on electric rates, as well as provide immediate user bill savings through lower demand and by shifting electricity demand to the cheapest times. The proposed system has the potential for large-scale commercial deployment due to its significantly lower operating costs and lowered initial fixed investments.

This Small Business Innovation Research (SBIR) Phase I project aims to resolve technical challenges associated with the commercial deployment of high-efficiency CO2 heat pumps in combined heating and hot water applications. CO2 heat pumps have demonstrated high efficiency in hot water applications with coefficients of performance up to 5. However, they typically operate much less efficiently in combined systems due to a lack of advanced controls. The research will develop a thermal stratification model of a hot water tank based on customer use and charging conditions, a predictive thermal demand model, and a simulation model of the whole system integrating heat pump performance, tank stratification, and predictive customer demand. The project will then develop new controls (hardware and software) to optimize for user and grid costs and emissions and validate the effectiveness of the resulting control system by integrating it into the existing prototype. This assessment will demonstrate the commercial viability of CO2-based combined heat and hot water systems with load shifting.